1995 Gordon Research Conference on Innovations in the Teaching of College Chemistry

9452956 Spencer The second Gordon Research Conference on "Innovation in the Teaching of College Chemistry will be held January 8-13, 1995, in Ventura, California. The conference will provide a unique opportunity for an influential group of educators to become familiar with rapidly advancing educational technologies, learn about emerging research in pedagogy and assessment, and discuss in depth issues and new curricular directions for chemistry education. Support is being used to insure that representatives of a broad range of institutions from all sectors of the educational community can participate in the conference.